Georgia STEPS (Science, Technology and Engineering Partners for Success)

Community colleges play a vital role in educating undergraduate students. These higher education institutions educate nearly half of the nation's undergraduate students, particularly among low-income and first-generation students and students of color. Because of the rich diversity that currently exists at these institutional-types, there are immense opportunities to broadening participation throughout the engineering enterprise. To this end, the investigator outlines a joint collaboration with five community colleges, three school systems, two college career academies, and a state partner in Georgia - referred as the Georgia Science, Technology, and Engineering Partnerships for Success (GA STEPS) - to provide dual enrollment classes in career pathways for Georgia high school students in grades 9-12, thereby allowing secondary students to earn college credit. The Georgia STEPS program proposes to leverage mechatronics engineering as a means for broadening engineering participation for community colleges and underserved, underrepresented populations in 48 rural counties to increase engineering awareness, skills training and college and career readiness. The project builds on an existing collaboration that has developed successful engineering opportunities at the community college level, by including a wider regional network of rural Georgia counties and high schools. Further, this project has immense potential to transform engineering education and course-taking for students at the secondary and postsecondary level in Georgia and beyond. It has potential great potential to be scaled and replicated at other placed around the United States.

The project's intellectual merit and innovation is that it leverages a successful mechatronics engineering curriculum that supports engineering skills that support local industry as well as supporting innovations in the mechatronics field. The project includes a collective impact framework, involving various stakeholders and aligning quantitative and qualitative metrics and measurable objectives. The broader impacts of this project is that it increases the engineering knowledge and skills of underserved, underrepresented students that are enrolled in community colleges. Also, the impact to rural communities in Georgia support the fact that this project would meet broader groups that can be positively impacted by this type of collaborative. The ability to provide different parts of this engineering discipline across broad audiences in community colleges - that support underrepresented groups understanding of mechatronics engineering - is broadly useful to the field of engineering.